Determinants of Membrane Protein Topology and Structure

We will analyze the features of membrane proteins which determine their arrangement within the lipid bilayer. We will use fusions of the periplasmic protein, alkaline phosphatase (AP), to the integral E. coli membrane protein, MalF. Our results so far show that such fusions allow a reading-out of the information within a membrane protein that is important for its topology. We will use oligonucleotide-directed mutagenesis to alter sequences within such fusions and examine the effect on topology. Specific features of the protein which will be examined for their importance in determining topology are 1) the charged amino acids within cytoplasmic or periplasmic domains; 2) the charge distribution between periplasmic and cytoplasmic domains surrounding a membrane-spanning segment; 3) the length of membrane-spanning segments; and 4) the possible interaction between membrane-spanning segments.